Support for U.S. Participants in a Symposium on Advanced Materials in Brazil

0330763
Paulino
Travel support is provided for about ten U.S. researchers in mechanics of
advanced materials to participate in a joint workshop with researchers from
a number of Brazilian universities. The workshop will be held in Rio de
Janeiro, June 9-13, 2003 and will include a short course for advanced
graduate students. The purpose of the workshop is to explore areas of
collaborative research in micro-, nano- and bio-mechanics of materials,
including smart (active), composites, and functionally graded materials.
***